Microtubule-Dependent Transport of Cell Surface Domains

9505855 Travis The granuloreticuloseans (e.g., the Foraminifera) provide a window into understanding the motility of domains of the plasma membrane. In the past, this surface motility on the pseudopods (reticulopods) of these large protists has been assessed using relatively large surface-attached particles as visible markers. The particles move on a "raft" comprised of a membrane domain. The present proposal examines the transport of specifically labeled intrinsic components of these domains. Much of the knowledge on cell motility comes from studies on intracellular organelle transport. Cell surface domain transport and intracellular organelle transport share many characteristics including bidirectional and saltatory excursions that occur exclusively along microtubules. Correlative light and electron microscopy can demonstrate that both plasma membrane domains and organelles are directly linked to microtubules by structurally distinct crossbridges. In addition, the velocity profiles of these two transport phenomena are virtually indistinguishable. Consequently, cell surface domain transport and intracellular organelle transport may share a common mechanochemical mechanism and may be, in fact, manifestations of the same basic cellular process. This proposal outlines a series of experiments designed to test this hypothesis by comparing directly the enzymatic properties of organelle and cell surface transport in Reticulomyxa, a freshwater granuloreticulosean. Experiments designed to characterize the mechanochemical signature of the motor ATPase include assaying these specific enzymatic parameters of the transport motor: ATPase kinetics, nucleotide specificity, and inhibitor specificity. The stated hypothesis predicts that these fundamental properties of the cell surface transport motor must be identical to those of organelle transport and will be refuted or confirmed by direct comparison in the same cell models. After completion of the first set of studies , the putative bidirectionality of transport along individual microtubules is studied by reevaluating transport in microsurgically prepared pseudopod fragments. This approach addresses serious frame-of-reference questions that have arisen in previous Reticulomyxa reactivation studies. These two sets of experiments provide necessary information about the mechanochemistry of the cell surface transport system and serve as a prelude to the third set to identify, isolate, and characterize that system's components. Reticulopodial motility and cell surface transport are cell physiological processes whose significance can be appreciated on a planetary scale. Since the Cambrian, forams and other granuloreticuloseans have used their pseudopods in the deposition of limestone shells and the structuring of marine sediments -- geological processes that have caused dramatic changes in the oceans and atmosphere. The proposed experiments have been designed to elucidate the mechanism of cell surface transport, arguably the most fundamental physiological process of this important taxon, since it mediates feeding, reproduction and shell construction. %%% Granuloreticuloseans (e.g., the Foraminifera) are protists which have pseudopods which appear granular and net-like (reticular). The study choses a representative granuloreticulosean, Reticulomyxa, to serve as a window into understanding the motility of domains of the outer membrane of the cell. In the past, this surface motility on the pseudopods (reticulopods) has been observed by labeling the surface with visible particles. The particles move on a "raft" comprised of a membrane domain. The significance of this transport can be appreciated on a planetary scale. Since the Cambrian, forams and other granuloreticuloseans have used their pseudopods in the deposition of limestone shells and the structuring of marine sediments -- geological processes that have caused dramatic changes in the oceans and atmosphere. The proposed e xperiments have been designed to elucidate the mechanism of cell surface transport, arguably the most fundamental physiological process of this important taxon, since it mediates feeding, reproduction and shell construction. Much of the knowledge on cell motility comes from studies on intracellular organelle transport, which is mediated by "motor" proteins which run along filamentous protein "tracks". The tracks make up the internal support network of the cell, the cytoskeleton, and have a polarity which can determine the direction of movement along them because most motor proteins move in a polar, unidirectional fashion. Cell surface domain transport and intracellular organelle transport may occur exclusively along one kind of cytoskeletal protein structure, the microtubule. Correlative light and electron microscopy can demonstrate that both plasma membrane domains and organelles are directly linked to microtubules by structurally distinct crossbridges. In addition, the velocity profiles of these two transport phenomena are virtually indistinguishable. Consequently, cell surface domain transport and intracellular organelle transport may share a common mechanochemical mechanism and may be, in fact, manifestations of the same basic cellular process. This proposal outlines a series of experiments designed to test this hypothesis by comparing directly the enzymatic properties of motor proteins responsible for organelle and cell surface transport. The stated hypothesis predicts that the motor proteins for cell surface transport are identical to those of organelle transport and will be refuted or confirmed by direct comparison in the same cell models. After completion of the first set of studies, the observed bidirectionality of plasma membrane domain transport along individual microtubules is studied by reevaluating transport in microsurgically prepared pseudopod fragments. Is there one motor protein responsible for bidirectional transport or two motor prote ins responsible for oppositely-directed transport? This approach addresses serious frame-of- reference questions that have arisen in previous Reticulomyxa reactivation studies. These two sets of experiments provide necessary information about the mechanochemistry of the cell surface transport system and serve as a prelude to the third set to identify, isolate, and characterize that system's components. ***